New Architectures for Almost-All-Optical Gigabit Networks

9314658 Banerjee The research will explore novel system architectures for the next-generation optical networks, specifically wave-division- multiplexing (WDM)-based reconfigurable, scalable, and modular optical networks with arbitrary and regular structures. The goal is to provide flexible and cost effective sharing of the aggregate optical communication spectrum, composed of a plurality of optical fibers, among a large and scalable user population. Specifically, the investigator will study WDM-based reconfigurable, scalable and modular optical networks with arbitrary and regular structures. He will also explore lightwave networks capable of supporting both circuit and packet switched traffic covering a scalable geographical region with optimized physical topologies. ***